Knowledge Based Expert Systems for Retaining Wall Rehabilitation Design and Cost Estimation

Rehabilitation of retaining walls is becoming a common practice, but it is a difficult engineering problem. The difficulty stems from the fact that there are numerous possible options for rehabilitation or replacement because of the nature of the soil characteristics. Costs could vary considerably depending upon the type of rehabilitation. This project will investigate the concept of incorporating the knowledge from many experts into a format which will enable designers to arrive at an economical solution with respect to the type of rehabilitation method used.